Formal Power Series and Algebraic Combinatorics: an International Combinatorics Conference

In June 2005, the seventeenth international conference entitled Formal Power
Series and Algebraic Combinatorics (FPSAC) will be held in Taormina, Italy.
This FPSAC conference shall have a wide interdisciplinary breadth, with
principal topics featuring algebraic and enumerative combinatorics and
their applications and relations to other areas of mathematics, physics,
biology and computer science. The interdisciplinary span is evidenced by the
choice of plenary speakers, including Christine Bessenrodt from Germany,
Serge Dulucq from France, Ronald King from England, Corrado De Concini,
Renzo Pinzani, and Claudio Procesi from Italy, and Vaughan Jones and
Jeff Remmel from the US.

The considerable span of this conference series is unique among international
conferences with an emphasis on combinatorial mathematics. This conference will
link leading researchers in combinatorics with strong researchers in allied
fields drawn from pure and applied mathematics, theoretical computer science,
physics, and biology. Another distinguishing characteristic of FPSAC conferences
is the concerted effort to recognize and encourage outstanding young scientists.
This is accomplished in part by choosing at least one plenary speaker to
be an ``emerging'' star, and by ensuring that talented young researchers
are well represented among the speakers selected for contributed talks.
The conference seeks to draw substantial participation from groups which
have been traditionally under-represented in the mathematical sciences.
FPSAC 2005 promises to be an excellent opportunity for young researchers to make
both domestic and international contacts that are likely to be of great value in
developing their careers.